Conference: 2022 Fall Workshop on Computational Geometry

This award supports student and postdoctoral fellow attendance at the 2022 Fall Workshop on Computational Geometry (FWCG), to take place during October 14-15, 2022, in Raleigh, NC, at the North Carolina State University. FWCG has a record of strongly encouraging participation by students, for whom the conference serves as a valuable educational experience, both for the technical content of the talks and for the opportunities for networking that it provides. This award will provide partial support to 21 students/postdocs.